A Harmonic Approach to Learning and Complexity

Harmonic analysis has played an important role in a broad range of areas. Computer scientists have begun using it as a tool for resolving questions about combinatorial circuits. In number theory and other mathematical disciplines, proofs obtained via harmonic analysis turn out to be astonishingly powerful. This research will develop new, efficient and useful learning algorithms, new computational models and new mathematical relationships among finite functions through the use of harmonic expressions. It will consider harmonic expressions themselves (independent of their relation to circuits) as models of finite functions. The computational theory of finite functions has grown over the last several decades. The ability to discern and exploit the structure of finite functions in computational settings has improved dramatically. The improvements have basically followed innovations in the models of computation which are studied. For the past fifteen years, the model which has dominated the interpretation of how finite computations should be examined is the combinatorial circuit, wherein calculations are performed on Boolean values passing through logic gates. Placing constraints on the measurable aspects of circuits (e.g., their depth, their size in gates and which logic-gates are employed) isolates and delineates understandable classes of finite functions. The most important and famous of these are the log-depth, polynomial-size functions (NC), the constant-depth, polynomial-size functions (AC), the constant- depth thresh-old circuits, whose gates are threshold functions (TC), and the monotone polynomial-size circuits, which allow no negations. These classes play both theoretical and practical roles. The class NC corresponds well with functions that have a hope of being computed fast in parallel by plausibly-sized parallel machines. The class AC corresponds with the functions that can be expressed by reasonably-sized programmable logic arrays. And the class TC is intimately related to the class of functions represented by artificial neural networks, and may well model newer optical computing devices. Thus, the strong motivation for studying circuits is to obtain improved insights into parallel programming, VLSI chip design, theories of learning and brain-like computation, and the potentials of new computing technologies.